REU Site: Information Systems Engineering at the Universityof Kansas

This project will bring ten undergraduates per summer to the University of Kansas campus to work with the Department of Electrical and Computer Engineering. The projects will be conducted in a ten week period in the summers of 1993, 1994, 1995. No more than two of the student participants per summer will be from the University of Kansas. The students will be working on existing research teams within the program. Special emphasis in the program is in the areas of microwave remote sensing, computer architecture, digital signal processing, artificial intelligence, telecommunications and networking, and very-large-scale- integration circuit design.